On a Class of Scalable Networks: Design, Performance and VLSI Layout

This project is a study of a two level interconnection networks, called dBcubes, in which hypercube subgraphs are interconnected by a de Bruijn graph. The purported advantage of this scheme is scalability. The hypercubes provide high local connectivity, while the de Bruijn graph allows a combination of fixed degree and low diameter. The goal of this project is to determine whether the study of interconnection networks of this type is relevant to practical computer architectures. Topics to be investigated include replacement of either the hypercubes or the de Bruijn graph with simpler graphs, a study of wormhole routing, algorithm embedding, and several implementation issues.